Collaborative Astronomical Research with Undergraduates in Flagstaff, Arizona

Seven Undergraduate students will be recruited nationally to participate in astronomical research in Flagstaff, Arizona in the summer of 1991. Representatives from Northern Arizona University, the Lowell Observatory, the Astrogeology branch of the United States Geological Survey (U.S.G.S.) and members of the National Undergraduate Research Observatory (NURO) will all participate in this program. Five specific research projects tailored for undergraduates will encompass research in stellar, extragalactic, and planetary astronomy.